Research Initiation: Neutralization of Oxygen Toxicity in Mammalian Cell Culture Using an Reducing Environment and Free Radical Scavengers

RESEARCH INITIATION AWARD: NEUTRALIZATION OF OXYGEN TOXICITY IN MAMMALIAN CELL CULTURE USING A REDUCING ENVIRONMENT AND FREE RADICAL SCAVENGERS ABSTRACT The proposed work will serve to define problems of oxygen toxicity in mammalian cell culture and lead to the development of cell culturing strategies to decrease oxidative damage and thereby increase reactor productivities. The use of redox potential and fluorescence as metabolic state sensors will further the understanding of cellular metabolism and assist in the development of the important non-invasive, online analytical monitoring methods. Additionally, through collaborative efforts, somatic mutagenesis in hybridomas caused by propagation as well as by free radical damage will be examined.